Acquisition, Analysis and Visualization Approach to Introductory Geological/Environmental Laboratory

The project is developing new laboratory exercises for non- science majors in introductory geology courses. Each exercise is divided into a 1) data acquisition 2) data analysis and 3) model visualization/testing phase. RISC-based graphics work stations, electronic measuring devices and field tests are being used to bring 3-D visualizations into the elementary course sequence. With the introduction of computer analysis of data and with computer modelling of geologic processes, non- science students are developing scientific methods and learning about critical environmental problems. Although these approaches are being developed for classes with large enrollments, the laboratory portion of the course involves 20- 25 students in each section, requires individual participation and introduces the use of computer visualization models to evaluate each simple hypothesis.